Geophysical Studies of Oldest Archean Crust in West Greenland

The Isua supracrustal rocks and their surrounding gneisses are among the world's oldest rocks and are truly unique for the study of continental crust. The West Greenland section also represents some of the best-exposed and best-studied Archean rocks known and thus constitute a prime target for geophysical studies. Primary objectives of this study include the Nordlandet granulite terrain, granitic and anorthositic intrusives, the gray basement gneisses, the Isua supracrustal rocks, and the crustal transition along the coast. Since geophysical interpretations for this oldest Archean crust are lacking, determination of 3-D relationships should contribute greatly to an understanding of early Earth's crustal processes. This investigation will include a gravity survey and gravity and magnetic interpretation for this area.